Paleoenvironmental Analysis of a Late-Quaternary Cave Deposit: Eastern Bergingia

Lower Rampart Cave 1 is significant as one of only three known arctic caves containing deposits in eastern Beringia which span the late-Quaternary. Among the three arctic caves, it is unique in containing the oldest, least disturbed and most complete stratigraphic record. Paleoenvironmental analysis of this important cave deposit will provide objective new data necessary to resolve some of the vigorously debated hypotheses regarding the nature of the late Pleistocene/early Holocene environment of eastern Beringia, a hypothesis known as the Productivity Paradox. As part of a larger on-going study, this research consists of five components: 1) sediment analysis, 2) large mammal taphonomy, 3) fossil pollen analysis, 4) charcoal species identification, and 5) accelerator dating. These analyses will contribute significant new data essential to understanding the full-glacial environment of eastern Beringia, the timing and nature of the faunal and floral transition between the late Pleistocene and the Holocene, and the abiotic response to the climatic amelioration following late-Wisconsin glaciation.